Non-Uniformly Hyperbolic Dynamical Systems with Singularities

This project is devoted to a special class of chaotic dynamical systems,
namely hyperbolic mathematical billiards. They serve as the prototype examples
of non-uniformly hyperbolic dynamical systems with singularities. Such systems
play an increasingly important role in the rigorous mathematical foundation of
statistical physics, so that the study of their chaotic (i. e. mixing)
properties is getting more and more physical relevance. The project mainly
focuses on a fundamental conjecture regarding this family of dynamical
systems, namely the celebrated "Boltzmann-Sinai Ergodic Conjecture", which
states that any finite system of (totally elastic) hard spheres moving on a
flat torus is fully hyperbolic and ergodic, of course, on the level set of its
trivial first integrals. The proof of this conjecture (in its full generality)
has been so far notoriously withstanding any attack against it. The first
major part of the present proposal directly targets this conjecture. The
second and fourth parts are blueprints for further research in this direction
by generalizing the original Boltzmann-Sinai Conjecture to cylindric billiards
(mathematical billiards with cylindric scatterers) and billiards in physically
more relevant containers, like rectangular boxes. The third part of the project
aims at the biggest open question in the topic of Wojtkowski's one-dimensional
falling balls: Wojtkowski's still unsolved conjecture on the full hyperbolicity
of the falling ball system with nonincreasing masses. (And such that not all
masses are the same, of course.) Beside these, the question of ergodicity
(possibly, under the condition that a strictly concave potential acts) is also
posed and targeted.

The foundation of statistical physics (like heat theory, dynamical theory
of fluids and gases) took place in the last third of the 18th century, mainly
by the groundbreaking works of Boltzmann and Helmholz. That foundation was,
however, based upon a strong hypothesis made by Boltzmann himself. That
hypothesis claims that any physical system with a huge number of interacting
particles (like molecules) has the property that for any fixed total energy
and initial state, the system will evolve to any other state with the same
energy. Although this conjecture, if taken literally, mathematically cannot
happen, yet the precise mathematical formalism and its rigorous verification
for different models of statistical physics bears a particular importance to
the understanding the physics of the surrounding world.